XIII International Symposium on Glycoconjugates to be held Seattle, Washington, August 20-26, 1995

; R o o t E n t r y F V- C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l P- P- * ! " # $ % & ' ( ) + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 9 e = e j j j j j j j 6 1 g T / 6 j 6 j j j j ~ j j j j 0 Lennarz MCB-9422460 The XIIIth International Conference on Glycoconjugates will be held in Seattle, Washington, August 20-26, 1995. The Symposium which is sponsored by the International Glycoconjugate Organization is the major international meeting of scientists in glycoconjugate research. In order for junior scientists to attend and to present their data and to have further excvhange on the international level it is necessary to obtain travel funds for them. Therefore the Society for Glycobiology is requesting travel funds for junior scientiqts. The mechanism of selecting awardees will be on a competitive scientific basis. %%% In the past few years much research has provided evidence that the carbohydrate chains on proteins play an important function in the diverse properties of those proteins. This conference will report on studies carried out at many sites around the world on the basic processes whereby these carbohydrate chains are assembled and how they function. *** ; Oh +' 0 $ H l S u m m a r y I n f o r m a t i o n ( D h R:\WWUSER\TEMPLATE\NORMAL.DOT Lennarz jack cohen jack cohen @ .- @ @ .- @ Microsoft Word 6.0 1 ; c U c ! ! ! ! ! ! ! K @ Normal a " A@ " Default Paragraph Font 0 jack cohen"\\CLM11\MCBPUB\BIOCHEM\LENNARZ.DOC @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , '$ d }w; } d g 2 HP DeskJet 500 D L f , , '$ d }w; } d g 2 Õ Õ Õ 1 Times New Roman Symbol & Arial " h At EAt E $ / Lennarz jack cohen jack cohen ;